REU Site: Reviving the Past: Undergraduate Research Program in Biocultural Anthropology

This award provides funds for a Field School in Biocultural Anthropology at
the University of Notre Dame. The program will engage a diverse
pool of talented undergraduates in an experiential learning
environment that immerses them in anthropological method and theory.
Using the large Byzantine St. Stephen's skeletal collection from
Jerusalem as the cornerstone for study, historical and archaeological
information will be synthesized in a biocultural reconstruction of
ancient monastic life. Students will engage in original research to
develop a suite of methodological skills in the sciences and enhance
their capability for collaborative research. They will share in a
field trip program to area research sites, libraries, museums, and a
functioning monastery to gain an understanding of the cultural
parameters affecting human adaptability. Exploration of ethical
issues related to the politics of archaeology, treatment of
artifacts, and repatriation will focus attention on scientific
ethics, an important foundation for future research endeavors.
Finally, a dynamic lecture program delivered by an international team
of scholars in the fields of anthropology, biology, history,
classics, geography, theology, and Near Eastern studies will
crystallize the importance of a holistic approach for studying the
past. The biocultural field school will provide an
intellectually energizing learning experience, which will equip
participants with a suite of talents for viewing their surroundings.
The integration of practical research skills, ethical inquiry, and
the synthesis of disciplinary paradigms for viewing human interaction
will prove useful as students move into graduate or professional
careers in the natural and social sciences.

This award contributes to the Foundation's continuing efforts to attract
talented students into careers in science through active undergraduate
research experiences.